REU Site: Continental Shelf Research for Undergraduates

0353779
This award provides funding for a Research Experience for Undergraduates (REU) Site program in marine sciences at Rutgers University. The program will be called "Continental Shelf Research for Undergraduates (CSRU) and will support ten students during a ten week summer research program for three years. The program will include independent research projects by the students, field trips, workshops and seminars. It will conclude with student poster presentations and written reports, including a collaborative paper. Students receive a stipend for the summer, housing, travel expenses and some expenses for their research projects. They will be eligible to compete for travel funding to present the results of their research at a major oceanographic conference after the summer program is completed.